The University of Chicago Computer Science Laboratory

This award will provide funds to develop computing infrastructure for a wide variety of research, with the primary areas being equational logic, case-based reasoning, computer vision and graphics, numerical solution of partial differential equations, and computer science theory. The infrastructure to be set up will include a VLSI design facility to be used by students and faculty in developing and testing circuit designs. This facility will be used be used by a number of other research projects. The research in equational logic is concerned with the development of useful implementations of an equational logic programming. The following issues will be addressed: compiler optimizations, radical new implementation techniques based on congruence closure, extensions of the language to provide modularity, implementation of indeterminate systems without the Church-Rosser property, more powerful techniques for guaranteeing determinacy, more flexible input-output interfaces integrating equational programming with structure editors and debuggers, and parallel evaluation of equational programs. The research on case-based reasoning is concerned with the analysis and implementation of reasoning by remembering previous results and adapting them to new situations. This approach will be applied to four projects: evaluating student applications, diagnosing mechanical failures, routing delivery vehicles, and tutoring high school students in geometry. The research on computer vision and graphics involves the study of a new efficient general purpose algorithm for recognizing polyhedral objects in arbitrary orientations. Practical applicability of the algorithm will be tested and generalizations of the algorithm will be investigated. The research on numerical solutions of partial differential equations involves several projects dealing with particle methods, multigrid methods, variational inequalities, and superconvergent recovery of information in finite element methods. The research also involves studying operator-splitting and time-splitting methods for the simulation of fluid flow in porous media, and dealing with singularities in solutions of the Navier-Stokes equations. The theoretical areas of research include complexity theory and algorithms, programming language semantics, recursion theory, and the application of recursion theoretic concepts and techniques to the theoretical foundations of learning.